Collaborative Research: Toward a Circumarctic Lakes Observation Network (CALON): Multiscale Observations of Lacustrine Systems

The scientific goals and methods that address the intellectual merits of the research are: (1) Expand on existing lake monitoring sites in northern Alaska by developing a network of regionally representative lakes along environmental gradients from which we will collect baseline data to assess current physical, chemical, and biological lake characteristics. This will allow the project scientists to make spatial and temporal comparisons to determine the impact of warmer temperatures, changing cloud cover and precipitation patterns, permafrost degradation, and direct human impacts on lakes; (2) Implement a multiscale (hierarchical) lake instrumentation scheme such that basic data is collected from 51 lakes, while a subset of lakes are more intensively instrumented; (3) Provide regional scaling and extrapolation of key metrics through calibration and validation of satellite imagery with ground measurements; and (4) Develop and implement standardized protocols to enable inter-site comparison and to prepare for expansion towards a pan-Arctic network. The education/outreach goals that address the broader impacts of the research outlined above are: (1) Incorporate indigenous observations of lake physical and biological characteristics and changes. Innovative interactive methods of sharing information will be developed and made available through native and local organizations. Scientific and technical training will be provided to Iñupiat students for monitoring lake and drinking water quality; (2) Develop a demonstration monitoring network based on the Delay Tolerant Network (DTN) architecture and link this network to research centers, indigenous communities, and other power- and connectivity-challenged environments; (3) Develop and refine data management, visualization, and archiving activities with A-CADIS; and (4) Provide an introduction to Arctic science for several beginning investigators.